Workshop on Social Informatics; June 18-19, 2004; Beckman Center, Irvine, CA

This award will provide funding for a workshop to honor and memorialize Professor Rob Kling, the father of the field of Social Informatics. He conducted over 30 years of systematic and analytic research about IT and social life. The DST program funded the first workshop on Social Informatics in 1997 at Indiana University. Rob Kling was the PI and then director of the Center for Social Informatics. This award will allow for a systematic collection of the research in this area of the Digital Society and Technology (DST) Program. The workshop will highlight, critically examine and consolidate the works of Rob Kling and extend that work by providing an opportunity for other scholars to contribute their work on social informatics, thereby perpetuating the field. The broader impacts stem from the profound and yet practical view of IT and social life put forth by Kling and others working in the field of social informatics as intertwined socio-technical networks of people, institutions, practices and technological artifacts. Such a conceptualization leads to insights related to the challenges of IT design, use and implications from a human perspective. The workshop will also celebrate Kling's life and scholarly contributions.